Design and evaluation of a programming model for petascale parallel scripting.

This award is funded under the American Recovery and Reinvestment Act of 2009 (Public Law 111-5).

This project is an exploratory research project proposing to evaluate the possibility of a new parallel scripting programming model that can be applied to enable a large, new, and useful class of scientific applications on extreme-scale computing systems.